On-Line Monitor for Metallic Wear Products

The purpose of the proposed research is to develop a nondestructive instrument to identify the levels of metallic wear particles in circulating oils in industrial machinery. The technique is based on transmission of low-energy x-rays through a fixed path of length of lubricating medium. Metallic wear particles can be distinguished, since the attenuation by the metallic particles is an order of magnitude larger than the hydrocarbon medium. On-line measurement of wear particles in lubricant systems has a great economic benefit. The proposed technique is novel. The PI and the company have an excellent track record. An award is recommended.